Thermal Spray Processing of Nanoscale Materials II Conference, Quebec, Canada, August 15-20, 1999

Abstract
CTS-9909800
C.C. Berndt, SUNY Stony Brook, and United Engr. Trustees

Partial travel support is requested for young U.S. academic speakers at the 'Thermal Spray Processing of Nanoscale Materials' to be held in Quebec City in August 15-20, 1999. The objectives are to assess the current state in science and technology of nanocrystalline coatings and identify future trends. The conference will include state-of-the-art analysis, oral and poster presentations focused on novel methods for thermal spraying and the feasibility of large-scale industrial production of nanostructured coatings. Industrial perspective and industry participation have been encouraged. A brochure with the extended abstracts will be available at the meeting, and a summary article will be published in a scientific journal.
The conference is co-sponsored by the Office of Naval Research, U.S. Engineering Foundation, National Research Council of Canada, and Hydro-Quebec.